Skin Cancer Recognition by Computer Vision

This research is directed to computer software for assisting physicians in the diagnosis of skin malignancies, including malignant melanoma, squamous cell carcinoma, and basal cell epithelioma. The purpose is to combine a computer program with a computer vision front end and a video disk tumor image reference file to create a useful diagnostic tool for skin cancer. This research project involves algorithms found in Phase I research to detect types of tumors with high accuracy. Early results show the feasibility of detecting tumor borders, ulcers, telangiectases, and semitranslucencies. This proposal addresses the important area of the application of artificial intelligence techniques to computer vision. Such techniques have potentially enormous commercial applications in such fields as robotics and industrial automation as well as medical imaging. An automatic tumor recognition device could serve the nation's interest in continuing the lead in medical diagnostic devices. It is hoped that the recognition of biologic images, so far eluding computer vision researchers except in limited domains, will be advanced by the development of an expert tumor diagnosis system